Travel Aid for the First International Conference on Substorms (ICS)

This projedct is for participant expenses for thed First International Conference on Substorms (ICS) to be held in Kiruna, Sweden on March 23-27, 1992. This ICS has been organized by the Swedish Institute of Space Physics and the second ICS will be held in Fairbanks, Alaska in 1994. Sessions will include (1) the ground state of the magnetosphere, (2) thed loading phase and the relation of substorm processes between the low-altitude auroral region and the magnetosphere, (3) substorm expansion phase, (4) substorm recovery phases, (5) substorm-like phenomena at other bodies of the solar system, and (6) and substorm models. This international conference is especially timely now due to current and forthcoming programs of the Solar Terrestrial Energy Program (STEP) which involves 4500 participants in 42 countries, and pacecraft projects of the Interagency Consultative Group (IACG). The substorm problem is a central one in these international programs and this conference will help to provide a renewed focus on the key scientific questions.